Wind-Generated Waves

9501508 Miles In this project, the PI, in collaboration with a graduate student, will study problems in geophysical fluid dynamics, with specific focus on the transfer of energy from turbulent winds to surface waves. The PI's original theory of 1957 was recently extended to include the effects of wave-induced perturbations of the turbulent Reynolds stresses. In this project, a specific mechanism will be examined to counter criticisms of this extension. Another focus will be to attempt to quantify the effects of wind gustiness on wind-to-wave energy transfer. ***